Sequencing Glycoprotein Oligosaccharides by Glycosidase Digestion/MALDI-MS

This Grant Opportunities for Academic Liaison with Industry (GOALI) project, supported in the Analytical and Surface Chemistry Program, focusses on the development of a standardized method for preparing glycoprotein digests for subsequent structure analysis of carbohydrate side chains using matrix assisted laser desorption ionization mass spectrometry (MALDI-MS). This method will permit structure determinations on samples more than one thousand times smaller than is now possible and thereby enable analysis of naturally occurring samples of limited size. During the tenure of this three year project, Professor Ronald Orlando and his students at the University of Georgia will collaborate with industrial partners at Hewlett Packard to develop this method and the software with which to analyze the MALDI-MS results. The data base of carbohydrate structures that exists at the Complex Carbohydrate Research Center at the University of Georgia will be used in this project. The carbohydrate side chains of mammalian glycoproteins provide functional control for many life processes. The determination of the structures of these side chains in naturally occurring glycoproteins is limited by the sensitivity of existing methods. Professor Orlando and his students at the University of Georgia will collaborate with their industrial partners at Hewlett Packard in developing a new mass spectrometric method for making these measurements. This project will provide a new analytical tool which can be used to study the function of glycoproteins.